Support for LASER Workshop Series

The Learning from Authoritative Security Experiment Results (LASER) workshop series focuses on learning from and improving cyber security experiment results. The workshop explores both positive and negative results, the latter of which are not often published. The workshop strives to provide a highly interactive, collegial environment for discussing and learning from experiment design, issues, and outcomes. Ultimately, it seeks to foster a dramatic change in the paradigm of cyber security research and experimentation, improving the overall quality and reporting of practiced science.